National Coordination Project

This proposal is for coordination and support activities for the Interagency Digital Libraries Initiative to assist in program planning, meeting sponsoring agency reporting requirements and disseminating program and project information to the larger digital libraries community. The effort is intended to will help facilitate the exchange of ideas, techniques, and procedures necessary to achieve a coordinated and integrated program, provide tools to promote interaction among Digital Libraries researchers and users around the world, and gather performance data for multiple purposes. The funding provides administrative and technical support in several distinct areas:
- Maintaining the Digital Libraries Initiative World Wide Web Portal
(www.dli2.nsf.gov)
-Collecting, organizing and making DLI project intellectual products
available to a broad audience.
-Providing logistical and program support for the Digital Libraries
Initiative All-Projects Meetings held semiannually.
-Creating and maintaining access capabilities at NSF and other
agency sites for project testbed demonstrations.
-Assisting in project coordination and high-level "interoperability"